Representation Theory of Finite Dimensional Algebras

The PI will investigate representations of finite dimensional algebras
by a variety of geometric, homological, and combinatorial methods,
the latter including adaptations of Groebner techniques. Her first
project targets representations with fixed dimension and fixed top.
For that purpose, the PI is supplementing the classical geometric
methods in the field -- predominantly affine -- with a projective
setting inside Grassmannian varieties. Combining the different
viewpoints, she will explore moduli problems for representations with
fixed top or fixed radical layering and work on a classification of
those degenerations of a given representation which leave the top or,
more strongly, the radical layering unchanged. The second project is
homological and focuses on a class of tame algebras (string
algebras), which first surfaced in work of Gelfand-Ponomarev on
representations of the Lorentz group. Her goal is to extend the (at
this point well-understood) homological behavior of finite
dimensional representations to infinite dimensional ones. In
particular, she will address the structure of modules of finite
projective dimension and the placement -- in terms of in- and
outgoing maps -- of the full subcategory of such modules within the
entire module category. The third project is aimed at derived
categories. In this direction, the PI will continue prior research
on the geometry of chain complexes. She expects applications to a
longstanding homological problem known as the `No Loop Conjecture'.

Under a wider angle, the project can be located as follows: The
majority of our physical models for the universe live in finite
dimensional vector spaces. The most interesting of these spaces carry
additional structure, such as a Lie or associative algebra
multiplication, for example. Associative finite dimensional algebras
are the objects of the investigator's research. One approach towards
understanding them is to explore their 'representations', which can
be thought of as linearized snapshots of the algebra which are
realized within algebras of matrices -- both coarse-grained and
fine-grained snapshots are of interest to highlight different
features of the algebra.